SBIR Phase I: High-Density Microcapillary Bioplate

This Small Business Innovation Research (SBIR) Phase I project is to develop a new microcapillary bioplate platform for biochemical analysis using a new sealing fabrication technique. The advantages of this approach will be to add the following attributes to high density glass microcapillary bioplates: improved reliability and elimination of cross-contamination through disposability, complete flexibility in diameter and length of capillaries, use of 100,000 to 10 million capillaries per standard plate, improved capillary uniformity, dramatic reductions in cost and process times, and reduction of environmental contaminants.

The commercial application of this project will be to provide the biotechnology research community with less expensive and potentially disposable microcapillary plates for combinatorial biochemical assays.